BPC-AE: Collaborative Research: The Alliance for the Advancement of African-American Researcher in Computing (A4RC)

North Carolina Agricultural and Technical State University, together with collaborating institutions Clemson University, Prairie View A&M University, the University of Colorado, the University of Wisconsin, Auburn University, the University of Indiana, Norfolk State University, Virginia Polytechnic Institute and State University, Fort Valley Sate University, and Jackson State University, proposes an extension of the successful Alliance for the Advancement of African-American Researchers in Computing (A4RC, pronounced "A-Force"). A4RC aims to increase the number of African-Americans obtaining advanced degrees in computing, particularly at the Ph.D. level. A4RC establishes and develops student pipelines from HBCUs to universities offering advanced degrees in Computing. A4RC has amassed a body of knowledge and experience with respect to what it takes to build effective HBCU/R1 faculty collaborations, develop productive HBCU/R1 research teams that include graduate and undergraduate students, and prepare undergraduate and master's students for research at the Ph.D. level. A4RC uses a "research pod" concept that is efficient, flexible, and effective in terms of HBCU/R1 research collaborations. With this extension, A4RC plans to expand the alliance to include a greater number of HBCU/R1 research collaborations, and to build new partnerships. A new category of partners -- Affiliate Partners -- will engage additional HBCUs and national labs and A4RC will become formal partners with the very effective BPC Demonstration Project, African-American Researchers in Computing Sciences (AARCS). A4RC will build collaborations with the BPC STARS and Empowering Leadership Alliances, and ADMI: The Symposium on Computing at Minority Institutions.